Bimolecular Chemical Reactions in van der Waals Clusters

Dr. Elliot Bernstein is supported by a grant from The Experimental Physical Chemistry Program to investigate reaction intermediates isolated in very cold molecular clusters. This research is of fundamental importance in assessing the influence which various solvents have on reacting solutes during a chemical reaction. Bimolecular chemical reactions in isolated van der Waals clusters will be studied using time of flight mass spectroscopy, fluorescence excitation, dispersed emission, and phosphorescence excitation techniques. The reactions of interest are photoinduced and can be classified as: 1) solvent assisted and stabilized electron transfer, 2) addition to substituted ethylenes, and 3) aromatic ring substitutions. Nanosecond time resolved experiments will be performed to determine cluster structure and energy levels, to identify the potentially reactive systems, and to characterize the product and transition state systems. Cluster reaction dynamics will be investigated through picosecond time correlated single photon counting and various two color pump/probe techniques. Theoretical studies of these cluster reactions will involve an extension of the RRKM calculations which Bernstein has previously applied to bimolecular cluster reactions.